NSF Young Investigator Award

This research focuses on the physics of chemically prepared quantum dots. Four problems are targeted: controlling the quantum dot size and size distribution, fabricating arrays of quantum dots, generating samples with quantum dots in a semiconducting host, and understanding the role of the quantum dot-host interface.